Analytic Torsion on Calabi-Yau Moduli

Abstract

Award: DMS-0606721
Principal Investigator: Hao Fang

The principal investigator proposes to study analytic torsion on
the Calabi-Yau manifolds. Inspired by
Beshadsky-Coccoti-Ooguri-Vafa, the principal investigator , joint
with Lu and Yoshikawa, has constructed a new holomorphic
invariant of Calabi-Yau manifolds, which can be computed the
invariant for one dimensional moduli spaces. In general, the
principal investigator suggests an approach to analysis the
asymptotic behavior of the new invariant, by using the local
index theory techniques. This project should give insight on
better understanding of the torsion invariants and the Calabi-Yau
moduli. The proposed study can be viewed as an attempt to study
problems in algebraic geometry using methods of differential
geometry. By studying local geometry analytically near the
singularities, the principal investigator also hopes to give new
examples of the explicitly computable torsion invariants and
reveal relations of torsion invariants to number theory.

This project also will have broader impact. Torsion invariants
have come from topology and high energy physics theories. The
proposed study will shed new light on understanding Mirror
Symmetry, which is one of the central problems in current
theoretical physics. Understanding this theory will give
mathematical foundation of the String Theory, which is a
potential unified theory for high energy physics long sought
after since Einstein's time. For example, the proposed research
might lead to better understanding of (the number and the shape)
of the universe. Interaction with fellow mathematicians and
physicists is expected and will be necessary for the success of
this research project. The principal investigator will
participate the integrated research and education activities that
will promote the education level of the nation.